Qualitative Studies of Parabolic Partial Differential Equations

Proposal DMS-0400702

Title: Qualitatitve studies of parabolic partial differential equations
PI: Peter Polacik, University of Minnesota (Twin Cities)

ABSTRACT

The abstract follows:

The project will develop along the following central themes: symmetry
properties of positive solutions of parabolic PDEs, principal Floquet
bundles and exponential separation, large time behavior of solutions of
parabolic PDEs and the dynamics of quasilinear competition-diffusion
systems.

Symmetry (radial or reflectional) plays an important role in
qualitative analysis of solutions of PDEs. By now, a fairly general
understanding of symmetry of positive solutions has been achieved for
second order elliptic equations on both bounded and unbounded domains,
and for parabolic equations on bounded domains. For nonautonomous
parabolic equations on unbounded domains the symmetry problem has not
been addressed so far. This problem is more intriguing; standard
methods used in earlier symmetry results do not give desired
conclusions. Exponential separation, associated with the principal
Floquet bundle of linearized parabolic equations, is among new
techniques that can facilitate the analysis. The principal Floquet
bundle is an interesting topic in its own right. It is a natural
extension of the concept of principal eigenfunction of elliptic
operators to nonautonomous parabolic operators which has already proved
very useful in the study of nonlinear equations. Both its basic
properties and applications are to be further investigated. A better
understanding is needed to make this tool applicable to problems on
unbounded domains, however, ideas related to this concept have already
triggered progress in the symmetry problem. The next topic, large-time
behavior, includes in particular a basic question on the semilinear
heat equation, as to whether all bounded solutions on multidimensional
domains converge to an equilibrium. This has been already been answered
(negatively) for spatially inhomogeneous equations. For homogeneous
equations, this long standing open problem will require new ideas.
Competition-diffusion systems that are to be considered in the project
have their origins in ecology. Bifurcations of steady states, their
stability and as complete as possible an understanding of global
dynamics is expected to shed light on coexistence of species (of
phenotypes) with different dispersal rates. While a large class of
semilinear systems has already been successfully treated, more realistic
quasilinear systems call for a new approach.

In less technical terms, the project can be characterized as
qualitative or geometric analysis of solutions of nonlinear evoution
equations, such as reaction-diffusion equations. As a rule, such
nonlinear equations can "never be solved". Letting aside exact solutions
which are very rarely available, approximate methods, even with the
presently available computation power, can seldom provide answers to
questions of global nature, for example, questions on the behavior of
solutions on infinite time intervals or collective behavior of solutions
(structural stability). Yet, for the internal development of the theory
of PDEs as well as for improvement of their modeling relevance in other
sciences, such questions are important to ask and answer. For this
purpose, many methods of qualitative analysis of nonlinear PDEs have
been developed, mainly in the last 2-3 decades. The present project
relies on these methods, combining classical PDE techniques with
dynamical systems ideas, and, at the same time, attempts at development
of new techniques. Among main objectives of the project is the
description of the large time behavior of the solutions. Spatial
profiles (symmetries) and temporal behavior (asymptotic periodicity,
stabilization to equilibria) will both be examined.